DCL: NSF INCLUDES Conference Grant

The National Science Foundation's (NSF) Inclusion across the Nation of Communities of Learners of Underrepresented Discoverers in Engineering and Science (NSF INCLUDES) intiative supports models, networks, partnerships and research to ensure the broadening participation in STEM of women, members of racial and ethnic groups that have been historically underrepresented, persons of low socio-economic status, and people with disabilities.

The University of Cincinnati, lead for a tri-state (OH, KY, IN) project, will convene a three-day conference to convene national and local experts to explore the best practices that support the development of a backbone organization in the context of using a social innovation model for broadening participation in STEM. The intent is to strengthen the network among participants and leverage learning from the Cincinnati Strive experience with collective impact across the Midwest and beyond.

Results from the NextLivesHere: Social Change Innovation Summit, will be disseminated in the tri-state region through the Greater Cincinnati STEM Collaborative (GCSC and the Ohio STEM Learning Network (OSLN). National dissemination will occur through informal and formal STEM professional organizations and publications as well as through participation in the NSF-developed national backbone organization.